Strengthening our Audience Connection with Icelights: Questions of the Moment (Phase II)

The National Snow and Ice Data Center (NSIDC)proposes to continue the on-line publication of Icelights--a sub-site of the NSIDC Arctic Sea Ice News & Analysis website--which offers scientifically accurate articles, created to be accessible to the general reader, that help NSIDC interact more directly with the public on issues related to Arctic sea-ice extent and trends and to respond directly to the public inquiries on timely scientific topics.

The proposal aims to achieve several specific, and measurable, goals:

• To continue the on-line publication of Icelights.
• To increase the frequency of Icelights posts per month to an average of 2 to 4 from the current 1 to 2 per month.
• To launch a series of special posts on the site, including blogging from scientific conferences where sea-ice topics are discussed, such as the American Geophysical Union’s annual meeting. And to launch a series of “guest posts” open to scientists or science bloggers.
• To increase the amount of two-way communications with readers of the site, including the general public, but also members of the traditional news media and the “blogosphere.”